REU Site: Shannon Point Marine Center

This award supports a Research Experience for Undergraduates (REU) Site proposal to provide research experiences for selected undergraduates in marine sciences, with special emphasis on nutrient flux/mass energy transformations, crustacean larval biology and hydrocarbon contamination in the marine environment, to acquaint them with the excitement and opportunities of academic research and to encourage them to pursue graduates studies and a career of research.